National Laboratory for Applied Network Research (NLANR) Measurement and Network Analysis (MNA) Group: New Activities Proposal

To continue to address the goal of characterizing the behavior of HPC
networks, the NLANR/MNA group plans to extend and expand the Network
Analysis Infrastructure (NAI) by deploying more sophisticated measurement
architectures, meeting the needs of new measurement domains, and
developing network analysis partnerships with established and developing
researchers. Planned projects include the extension of the Active
Measurement Project (AMP) into the campus domain, the repackaging of AMP
for distribution, a wider range of measurements, and the development of
new data analysis tools, including visualizations and automated event
detection. The Passive Measurement and Analysis (PMA) project will be
extended to allow detailed study of packet flows through a router
and across an end-to-end path. Other developments will include PMA
measurements focused on coordinated measurement, allowing the behavior of
parts of the network to be understood as they relate to one another, as
well as measurements of higher speed network paths. With these
developments, the NAI will continue to be an excellent platform and source
of research data and methods from which other researchers (including
students) can build their own projects and with which systems engineers
and administrators can improve their networks.